Determination of the Neutron Lifetime using Magnetically Trapped Neutrons

Research will be carried out leading to an improvement in accuracy of the
neutron lifetime. A new cooling and trapping technique (developed by the
same researchers) will be used to aid in the measurment. The lifetime
measurement will permit more precise tests of the standard model of
electroweak interactions. The experiment will be carried out at the
National Institute of Standards and Technology research reactor. This
activity is multidisciplinary, bringing together low temperature
techniques and nuclear physics techniques as well as understanding of
condensed matter, molecular and nuclear phenomena. The methods being
developed will also permit development of a new, intense source of
ultra-cold neutrons for further nuclear physics studies and for future
materials research studies. The lifetime measurement and the possible
study of correlations in neutron beta-decay are high priority activities
in contemporary nuclear physics and studies of fundamental symmetries.
Improvement of existing state-of-the-art equipment is integral to this
activity. Education of graduate and undergraduate students and postdocs is
a strong component in every aspect of this grant.